Doctoral Dissertation Research: Processing Health Policy Agendas in Congessional Committees

9320917 Jones This Doctoral Dissertation Research Support grant investigates how Congressional committees and subcommittees influence the policy process for the issue of health policy from 1945-1992. By applying methods and theory from the agenda setting literature to study committee behavior, the research develops a new approach to policy making in Congress. The research consists of two main sections. First, a theoretical approach to examine the committee system is developed using an issue agenda driven methodology. Second, the empirical phase of the project involves the creation of a database that traces policy development through three phases: committee and subcommittee hearings; committee markup meetings; and, final passage of statutes into law. By matching a new theoretical perspective with this powerful database, this research allows for the examination of the finer details of committee behavior long ignored and least understood to scholars of Congress. ***